3-D Evolution of Arc Magmatism and Associated Hydrothermal Activity in Central Arizona

Barton
EAR-0230091

This work will study arc magmatism and hydrothermal activity in a 75x30x10 km block of the upper crust in central Arizona. The area has exceptional 3-D exposure due to the topographic relief, arid climate, and extensional fault rotation. This area presents an exceptional opportunity to study shallow (<10 km) magmatic systems, and address near versus far-field controls on mineralization, hydrothermal systems, and styles of magmatic evolution. We hope to develop a picture of the evolution of large magmatic centers in arc settings. The work will focus on geologic mapping, structural reconstruction, geochronology, and petrology of contrasting Laramide centers in the Tortilla and Dripping Spring Mountains. This area encompasses the Ray, Globe-Miami, and Superior mining districts. Mapping will resolve the distribution, timing, and character of igneous, metamorphic, and hydrothermal features. Using these results, pre-extension geometries will be reconstructed and linked to industry and USGS studies. Magmatic and hydrothermal events will be constrained with U-Pb, Ar-Ar, and Re-Os dating and whole rock, mineral, isotope and fluid inclusion studies. Broader impacts include education of post-doctoral, graduate and undergraduate students, collaborations with the USGS and the mining industry, and improved exploration models for porphyry copper and related ore deposits.